Industry/University Cooperative Research Center for Wireless Information Networks

Abstract 9615033 Goodman This award provides funding for an NSF/Industry/University Cooperative Research Center on Wireless Information Networks (WINLAB) at Rutgers University and support of an undergraduate student to participate in the research of the Center. The research activities of the Center will contribute to the rapidly expanding technologies of wireless communications and mobile computing. The research proposed for the next five years of support is motivated by an analysis of personal communications in the year 2010. Projects that will be undertaken will build on research conducted in the first five years of WINLABOs operation and are in the categories of network architecture, mobile computing, radio resource management, access technologies, and mobility management. The Center will continue to collaborate with its thirty corporate and government sponsors and it is expected that this support will grow. Additional funding is provided in this award to support a minority undergraduate student for the summer to conduct a study on an ongoing research project within the Center.